Bridging Microstructural and Continuum Theories of DispersedSystems with Parallel Computer Architectures

The object of this proposal is the development of scalable parallel computing algorithms for multi-particle system flow with negligible inertial effects. The particles may have arbitrary shape and roughness. The preparation of the governing equation combined with the use of the advanced parallel computer in suspension rheology. The governing Stokes equations are transformed into a set of Fredholm integral equations of second kind with double-layer densities on the surfaces of particles and on the boundary of the system. The methodology can be applied to dilute and concentrated suspension flow, non- spherical particles and irregularly bounding walls. The emphasis of this proposal is on the computational algorithm rather than physical problems. The goal is to reduce the frequency of inter-processor communication, and to shorten the inter-processor messages, which would increase the overall computational speed. The development of an efficient computational methodology for suspension flow at low Reynolds numbers has a broad range of applications in chemical, pharmaceutical and other industrial processes that use particulate suspensions.